The Geometry of Robot Motion in a Curved World

This Research Initiation Award will permit Dr. Johnstone to extend his work in real algebraic geometry to the domain of robotic motion planning. He will begin by generalizing common techniques for polyhedral motion planning to handle robots and manipulators with rounded surfaces operating among curved obstacles or in contact with curved workpieces. This study may increase our understanding of solid-modeling representations and techniques.